End-to-End Trust and Security for the Internet of Things Workshop

This "End to End Trust and Security Workshop for the Internet of Things" is a workshop jointly sponsored by the IEEE, Internet2 and the National Science Foundation. The workshop brings together researchers, academics, government agencies, and standards bodies for a series of panels, presentations and breakout discussions around the unsolved research and operational challenges in developing a security framework for the Internet of Things (IoT). Participants in the workshop, being held at George Washington University in Washington, DC, will range from postdoctoral fellows, graduate students, IT architects, researchers, security professionals, industry leaders and government employees. This grant provides travel support for researchers and graduate students who otherwise would not have the ability to attend the workshop.